Using Case Studies to Strengthen Mathematics in ATE Programs

This project is working with selected Advanced Technological Education (ATE) programs to identify characteristics of strong mathematical components and chronicle the process of developing such components through a series of case studies which is being made available in print and on the Internet. This information is being used by current and future ATE project directors to develop a more sophisticated understanding of the kinds of mathematical skills students preparing for technological careers are expected to have and a more realistic view of what ATE programs should accomplish in mathematics. Specific goals of the project include: (a) creating a vision of high quality mathematics for students in vocational and technological education programs consistent with high academic standards developed by numerous organizations, and (b) developing and publicizing a variety of effective strategies for creating challenging mathematical tasks.